Presidential Young Investigator Award: Micro-gravity Compu-tational Fluid Dynamics and Knowledge-Based Systems

This research is in two topics. The first is the development of supercomputing algorithms for micro-gravity liquid-metal flows that solve the mass, momentum, and energy equations for single phase liquid metal transport in space reactor systems. This work is also sponsored by Cray Research, Inc. The second topic is investigations into a artificial intelligence method and expert system technology for certain needs in the nuclear power industry. These include methodology for processing massive amounts of data and reduction of data to symbolic knowledge and real-time issues in knowledge based systems.